Encyclopedia of Bioethics Revision Project

Studies in Science, Technology and Society supports research and educational projects that examine the social, political, intellectual and economic contexts that influence the direction and use of science and technology. Ethics and Values Studies supports projects that examine the social, professional and individual values and mutual obligations and responsibilities that arise in interactions of science, technology and society. This project provides partial support for the scholarship needed to prepare a thorough and expanded revision of the entire first edition of the Encyclopedia of Bioethics. Users of the Encyclopedia include students and teachers in professional, graduate, undergraduate and high schools; professionals; researchers; public policy makers and the general public. This basic award-winning reference work was published by Macmillan in 1978. Since that time, there have been enormous changes and advances in the life sciences, including biotechnology and bioengineering, requiring major revisions to the entries in the current work. In addition, the revised edition will be more thoroughly and explicitly concerned with all branches of science that deal with living organisms and life processes. It will be more attentive to ethical issues in life sciences such as agriculture, genetics (including bioengineering), behavioral and social sciences, ecological sciences and biomedical technologies, as well as their implications for science and engineering education. Foundational problems related to the cultural impact of the life sciences and technology and the philosophy of science and engineering that influence the ethical responses will be examined. This expansion requires the development and integration of new sub-areas and topics into the work. Most of the support for this project is provided by the publisher; funds from this award will enable the additional scholarly effort that is needed to proceed expeditiously. This project will contribute to the development of a basic resource in bioethics, for use by scholars, students, and publics. The principal investigator and his advisors are very well qualified; prior results have been very meritorious and well received. Institutional and other support is good and costs are reasonable. The project has high priority for support.